Summer Workshops for Faculty, Doctoral Students and Adjuncts; Calculus, Differential Equations, and Linear Algebra

The workshops are including as participants mathematics regular and adjunct faculty and graduate students. Participants are primarily expected from the tri-state area of New York, New Jersey, and Connecticut; however, faculty from other regions are also encouraged to participate. A primary emphasis of the project is to assist faculty to "bring the lab to the classroom", focusing on the content areas of calculus, differential equations, and linear algebra. Another aspect of the workshop is to address issues to increase the successful participation of women and underrepresented minorities in mathematics.